An Adaptive Optics Survey for L and T Dwarfs in Double Star Systems

AST-0123304
Graham, James R.

The solar neighborhood within 50 parsecs will be examined for spectral type L and T dwarf companions using the adaptive optics system at the Advanced Electro-Optical System telescope on Haleakela, Maui Hawaii. Late-type binaries of low magnitude contrast will be examined to search for these companions. So few of these stars are known to exist today using classical techniques of observation, that discovery of new ones, which may result from the application of adaptive optics, will have a profound effect on our understanding of these objects.
***